Conference: Inaugural South East Neuroscience Conference, Whitney Laboratory for Marine Bioscience, St. Augustine, FL.

This award will support the inaugural meeting of the Southeast Neuroscience Consortium
(SENC). This organization was created by the merger of the Southeast Nerve Net (SENN)
(founded in 1983) and the Georgia South Carolina Neuroscience Consortium (GA/SC-NC) Since
its inception, the focus of SENN meetings has been comparative neuroscience while that of the
GASCNC has been systems neuroscience. Thus, meetings of the SENC will encompass the
spectrum of modern neuroscience.
The primary goals of meetings of the SENC will be to provide a forum for students and
early postdocs to give talks in a supportive environment where they get exposure to a large
audience and, at the same time, allow neuroscientists from across the South East to come
together. The majority if not all oral sessions will be set aside for students, thereby providing
them a rare opportunity to fine tune their speaking skills before encountering the more
impersonal audiences they would likely encounter at large national (i.e. Society for
Neuroscience) or international meetings. To facilitate student participation, a significant portion
of the award will be assigned to cover the travel costs of student participants. A major effort will
be made to attract students from two year colleges, where neuroscience is typically poorly
represented, and Historically Black Colleges and other minority institutions.
All told, we expect this meeting will enhance student training, enhance collabora